Mathematical Sciences: Set Theory and Analysis

Carlson will work on the following four problems and related issues: (1) Do the strongly meager sets form an ideal? (2) How far along the inner model hierarchy do strong covering lemmas hold? (3) Is Fraisse's conjecture on models with many isomorphic substructures consistently false? (4) Can the existence of medial limits be proved in set theory? These are technical questions lying at the foundations of axiomatic set theory. One wants to know under what assumptions they are true, whether there are models of set theory in which they fail and others in which they hold. It is subtle questions such as these that allow us to explore the limits of the axiomatic systems upon which all of mathematics logically rests.